Equipment for Full-Scale Tests of Reinforced Concrete Components

Equipment will be acquired to perform research on prestressed concrete and conventional reinforced concrete beam, girder, and slab problems.